Applied Microchemical Facility

An applied microchemical facility will be supported to carry out DNA and protein chemistry for biological and biochemical research. New instrumentation will be provided, and a wide range of research projects will benefit. The instrumentation will allow continued production of synthetic macromolecules and sequence analysis of natural macromolecules. Among the projects are studies on RNA splicing, immune regulation, protein folding, transposable elements and molecular genetics, mitochondrial function, yeast transcription and splicing, sea urchin development, DNA and protein chemistry and new reagents for site directed cutting, plant molecular biology, regulation of fruit fly transcription and development, membrane function, developmental neurobiology, and other areas of neuroscience, cell biology, molecular biology, and biotechnology.